Plasma Overlap Physics in Nested Penning Traps and the Quest to Confine Neutral Antimatter

It is intended to extend present understanding of how to achieve overlap of oppositely signed plasma species within nested Penning traps. (Penning traps are a plasma confinement approach which employs an applied electric field to provide charged particle confinement along an applied magnetic field.) The emphasis is on how to overlap positron and antiproton plasmas so that recombination takes place and trapping of antihydrogen atoms is possible.